Study of Particle Production in High Multiplicity Events (Physics)

This research will focus on the analysis of data and publication of results from measurements of p-pbar collisions at a center of mass energy of 1.8 TeV made using the Fermilab Tevatron Collider. These measurements were carried out under the name of Fermilab experiment E735. E735 was unique in that it accurately measured particle production at relatively low transverse momenta, Pt < 3 GeV, identifying the type of particle detected as being a pi+, pi-, K+, K-, p, pbar, lambda, or lambda bar. Charged particle multiplicity was also measured. E735 is expected to provide important information on the basic mechanisms of particle production at the highest energies presently obtainable in the laboratory. The results will be compared to a wide range of theoretical models, such as those that predict the existence of a new form of matter called the quark-gluon plasma.